Study of Archeological Sites and Fossil Hominid Localities in the Turkana Basin

Continuing his geological research in the Turkana Basin region of Northern Kenya, Dr. Brown and his colleagues will conduct a detailed study of specific subareas to determine local paleoenvironmental conditions. Some represent sites where hominid (human) fossil specimens are exceptionally well preserved while others are potential sources of hominid materials. Archaeological sites of great antiquity will also be examined and set in chronological order. Dr. Brown will provide detailed description of local sections, analyze sediments, and document lateral variation in lithologies. The goal of the research is not only to date important localities but also to determine local paleoenvironmental conditions and reconstruct landscapes at critical periods of time. In this process, Dr. Brown will also search for additional sites with archaeological and paleontological remains. The East African Rift Valley in which Dr. Brown will work is the prime source of evidence which relates to the development of humanity over the last four million years. Some individual sites have been well studied but others have not, and Dr. Brown is the first to attempt a chronological and climatic synthesis. This research contributes to that goal. To understand the history of human development is important, not only to date milestones along the road but also to reconstruct the shifting environment in which humans emerged, since it is clear that species respond to and are shaped by such fluxuations in their environment. This research will help to accomplish these goals.